Track 1, GK-12: Ecological Literacy in the K-12 Classrooms of Rural Michigan

This proposal describes a Track 1 project designed to bring inquiry-based learning to schools in rural Michigan. Eight graduate Fellows will connect with teachers to learn pedagogical skills and bring ecological concepts to schools. Eleven Faculty at Kellogg Biological Station will be involved in several aspects of the project.